Studies of the Role of Defects and Impurities in Device-TypeSemiconductors

The study of impurities in semiconductors and their relationship to device performance continues to be an active research area. Modeling work is being performed, experimental crystals are being grown, and experimentally produced deep traps in these semiconductors are being measured. Recent experiments and modeling are focusing on compound semiconductors. Finally, the modeling work on mercury cadmium telluride defect centers is being completed.